U.S.-Russia Workshop on Photosynthesis (Pushchino, Russia: May 1992)

A US-USSR workshop on photosynthesis will be held in the Soviet Union during August 1991. The USSR Academy of Sciences' team is lead by Academician Igor A. Tarchevsky, Director, Kazan Institute of Biology; Professor V.I. Kefeli, Director, Institute of Soil Science and Photosynthesis, Pushchino; and Academician A.A. Krasnovsky, A. N. Bakh Institute of Biochemistry. The American delegation will consist of 10 senior and 10 junior scientists. This proposal covers primarily the funding of the junior scientists (Ph.D. granted within past ten years.) The topics covered in the workshop will include the biophysical, biochemical, physiological and ecological aspects of photosynthesis. Attention will also be given to the processes affecting crop productivity. This project fulfills the program objective of advancing scientific knowledge by enabling leading researchers in the US and the USSR to combine complementary efforts and capabilities in areas of strong mutual interest and competence in the field of basic scientific research on the basis of equality, reciprocity, and mutuality of benefit.